U.S.-Poland Research on Non-local Charges in Supersymmetric Integrable Physics

This is a US-Polish collaborative research project on non-local charges in supersymmetric integrable physics. The principal investigator is Dr. Ashok Das from the University of Rochester. His Polish collaborator is Professor Ziemowit Popowicz from the Institute of Theoretical Physics at the University of Wroclaw.

The researchers will combine their different areas of expertise to try to solve some of the outstanding problems in the area of integrable models. In particular they will investigate the following three distinct but related problems in supersymmetric integrable systems: non-local charges, miura transformation and bi-Hamiltonian structure. Through this research they expect to provide further information on chemical and physical tuning in organic molecular solids.

This project in theoretical physics research fulfills the program objectives of bringing together leading experts in the U.S. and Central/Eastern Europe to combine complementary efforts and capabilities in areas of strong mutual interest and competence on the basis of equality, reciprocity, and mutuality of benefit.